On Line Cursive Handwriting Recognition

The problem addressed here is the recognition of cursive hand- writing by machine. The approach taken involves two stages: 1) a dynamic programming algorithm, and 2) rules-based discrimina- tion. The objective of this project is to determine the feasi- bility of this approach. A successful outcome would add another modality to those avail- able for communication between a computing system and its user. Cursive handwriting recognition has the potential to open up the use of computers to people who find the conventional keyboard unnatural or intimidating and to increase the efficiency of applications for which handwriting is more natural.